1995 Daghstuhl Workshop on Binary Decision Diagrams, Germany

Binary Decision Diagrams (BDD's) have found widespread use in synthesis, formal verification and testing of digital circuits. This success in the EDA research area has spawned research efforts on a number of fronts, including theoretical studies of algorithms and complexity, applications to such areas as artificial intelligence and logic programming, and extensions beyond Boolean functions to represent matrices, Markov systems, and multi-variate polynomials. This workshop (February 13-17, 1995) is the first ever held specifically on this important technology.